Studies of Interstellar Processes

9319283 Draine Studies of Interstellar Processes. Dr. Draine will use this award to support several research projects in the general area of theoretical astrophysics of diffuse interstellar matter. The studies include: (A) optics of interstellar dust grains; (B) photodissociation fronts; and (C) interstellar magnetohydrodynamic shock waves.